STTR PHASE I: Improved Performance Materials for Optoelectronic Devices

*** 9632070 Hutcheson This STTR Phase I project will investigate the possibility of developing a sub-micron characterization system using NMR, EPR, or ODNMR imaging. Optoelectronic devices require materials with controlled environments surrounding individual active ions. The inability to achieve precise control lowers efficiency, creates damage sites, and reduces the overall reliability of the system. Inhomogeneities which cause the environmental changes result from two sources; impurities and self contamination. In many crystals this second factor is more significant than impurities. The work proposed in this project attempts to measure self contamination on a sub-micron basis. Crystals will also be grown to demonstrate control of this defect at the minimum levels possible. Scientific Materials Corporation has the ability to generate process control to the near millisecond level which relates to crystal growth on the atomic level. The techniques for evaluation of crystals are currently limited to the one micron scale. The work proposed investigates the possibility of developing a sub-micron characterization system using NMR, EPR, or ODNMR imaging which in turn can be used for solid-state lasers, optical memories, holography, telecommunications, semiconductors, and nonlinear materials. ***